Operation of the NSCL as a National User Facilty & Research Program

This award provides funds to operate and maintain the National Superconducting Cyclotron
Laboratory (NSCL) at Michigan State University (MSU) as a national user facility, to support a
broad program in nuclear structure, nuclear astrophysics, precision measurements of fundamental
parameters and symmetries, and accelerator science, and to support the research programs of MSU
nuclear science faculty. The award will continue NSCL's national and international leadership in
these areas by supporting its operation as the nation's premier user facility dedicated to the
production and study of rare (short-lived) isotopes. The award will also allow the NSCL to exploit
the scientific opportunities newly available with the recently commissioned and world-unique
ReA3 beamline accelerator that enables experiments at energies that have not been explored with
rare isotopes and are relevant to supernovae and the structure of nuclei. These opportunities have
strong overlap with the stated scientific goals of the 2015 NSAC Long Range Plan, and form a
coherent trajectory towards the next generation accelerator, FRIB, which is being constructed on
the NSCL site. Approximately 80% of those conducting research at the NSCL are from outside
MSU and the support of NSCL will serve a broad scientific community. As the nation's largest
university-based user facility for nuclear physics, the NSCL will continue to provide unique handson
learning opportunities for educating the next generation of nuclear scientists, accelerator
physicists, and engineers. Approximately 10% of all nuclear science PhDs awarded in the United
States are based on research carried out at the NSCL, and approximately 100 undergraduate
students are actively involved in research at the NSCL each year. The laboratory has extensive
outreach activities, including facility tours for over 4000 people each year. In addition, research
is carried out in application areas such as development of new tools for radiation treatments of
cancer, systematic studies of how ionizing radiation affects DNA, discovery of novel atomic and
nanostructures in complex materials, and homeland security.

Intense beams of stable isotopes are accelerated using the NSCL's two coupled superconducting
cyclotrons, the CCF. The nuclei split into fragments as the beam strikes a stationary target. Each
fragment is itself a lighter nucleus, and many fragments are themselves short-lived isotopes. The
isotope of choice for a specific experiment is selected by means of a fragment separator: a magnetic
chicane that permits only a specific charge and mass through its pathway. The nuclei emerging
from the fragment separator form a new beam for use in studying various nuclear reactions. The
NSCL has seven end stations to where the isotope beam can be directed and each end station has
a variety of target and detector systems to carry out the desired measurements. The NSCL can
also bring the unstable isotopes to a complete stop using a dense gas; this in turn enables
experiments such as mass measurements using trapping techniques also used in atomic and
molecular physics. The ReA3 beamline accelerator reaccelerates stopped isotopes to low energies
(well below in-flight levels) for experiments that are important for nuclear astrophysics, including
the origin of stellar energy production as well as the dynamics of the birth and death of stars. The
reaccelerated beams are directed to one of the end stations for use in various nuclear reactions.